MRI: Acquisition of an "All-But-Detector" Single Crystal Diffractometer

With this award from the Major Research Instrumentation Program that is co-funded by the Chemistry Research Instrumentation and Facilities (CRIF) Program, Professor K. Travis Holman and colleagues from Georgetown University will acquire a single-crystal X-ray diffractometer without a detector since a state-of-the-art detector is currently available. The project is aimed at enhancing research and education at all levels, especially in areas such as (a) studies of metal-organic and metal-organometallic framework (MOFs) materials; (b) molecular materials for gas separation and storage; (c) self-assembly and encapsulation chemistry, (d) crystal polymorphism; (e) pathogenic crystal growth; (f) crystalline explosives; (g) optically-switchable magnetic materials; (h) single-molecule magnets; (i) molecular materials catalytic intermediates for C-H bond functionalization; (j) bioinorganic modeling; (k) frustrated Lewis pair and NO-activation chemistry; (l) stereodynamic sensors; and (m) and asymmetric catalysis.

An X-ray diffractometer allows accurate and precise measurements of the full three-dimensional structure of a molecule, including bond distances and angles, and provides accurate information about the spatial arrangement of a molecule relative to neighboring molecules. The studies described here will impact a number of areas, including organic and inorganic chemistry, materials chemistry and biochemistry. This instrument will be an integral part of teaching as well as research and research training and will contribute to educate students participating in activities such as the ACS project SEED and an NSF-supported REU program as well as undergraduate, graduate students and postdoctoral fellows.